Experimental Tests of Nuclear Models (Physics)

This grant supports nuclear physics experiments designed to search for and study intrinsic reflection-asymmetric configurations in odd-A and odd-odd actinide and rare-earth nuclei. Measurements sensitive to the predicted parity doublets that are characteristic signatures of such configurations will be carried out. The results will be compared with theoretical models. In addition, the principal investigator will prepare an extensive review article concerning the properties and spectroscopy of the odd-A deformed nuclei.